Workshop on Integrative Cognitive Science to be held in Arlington Virginia on March 20-21, 2003

This two-day workshop will define particular opportunities in the field of cognitive neuroscience. It is unique in its intent to explicitly identify particular linkages to promote among cognition, computation and biology. The three organizers are highly regarded leaders in their fields, and the speakers include a diverse group with many well-recognized names. Topics include how to define cognitive neuroscience and how to use biological, behavioral and computational approaches to study cognition, and the format provides adequate time to discuss the several topics proposed.
Results from the workshop will include a set of recommendations to NSF for programmatic and cross-directorate activity mechanisms to encourage productive new approaches to cognitive neuroscience.